Symposium on: The Chemistry of Metal Ions in Biological andBiomimetic Systems; Honolulu, Hawaii, December 17-22, 1989

A Symposium on "The Chemistry of Metal Ions in Biological and Biomimetic Systems" will be held on December 17, 1989 at the International Congress of Pacific Basin Societies. This conference will bring together investigators concerned with (1) Metalloenzymes: active site structures and properties; (2) Biomimetic metal complexes: models for structural and catalytic properties; (3) Metal-biomolecule interactions; and (4) Molecular targets of metals in biological systems. It is expected that a synergistic interaction between the conferees will result.